PostDoctoral Research Fellowship

This award is made as part of the FY 2018 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Julian Gold is "Percolation and Spin Glasses." The host institution for the fellowship is Northwestern University and the sponsoring scientist is Antonio Auffinger.